Acquisition of a Multi-Collector Inductively Coupled Plasma Mass Spectrometer (MC ICPMS) for Woods Hole Oceanographic Institution Dedicated to the Study of Earth and Ocean Sciences

0079733
Sims

This award provides 54% partial funding support for the acquisition and installation of a multi-collector inductively coupled mass spectrometer system for the Woods Hole Oceanographic Institution. The Woods Hole Oceanographic Institution is committed to providing the remaining funds necessary to acquire and install the system. The instrument system will be used for research and training of students in the fields of earth sciences and oceanography. Analytical applications will include high precision measurements of isotope ratios of geochemically significant elements such as Th, Pb, Mo, Hf, O, Sr, and Nd.
***